Advanced Languages for Scientific Computation Environments

The goal of the project is to demonstrate the feasibility of a broad-based language for scientific and engineering computation. Such a language should serve equally well for developing production scientific code (which is now typically written in FORTRAN or C) and as the scripting language for interactive scientific computing environments (such as Mathematica or Matlab). This breadth would greatly simplify the development of code by allowing a clean transition from prototyping and small- scale experiments to full production code, and would better support the evolution of production code. As a broad-based language it should support both numerical and symbolic computation, should include constructs r parallel programming, and should include the high-level language features found in systems such as Mathematica (e.g. pattern matching, higher-order functions, and automatic memory management). The project involves demonstrating that it is possible to support these features while maintaining good code efficiency. As such, the project includes work on compiler techniques, on language design, on the development of scientific codes, and experimentation on the codes using the compiler and language. The project is using ML extended with the parallel constructs from NESL as a testbed.